Upgrade of Data System for Mass Spectrometer

*** 9709257 DUNLAP This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at the University of South Carolina to acquire an upgrade of the data acquisition and analysis system of an existing mass spectrometer. This equipment will enhance research in a number of areas including the following: (1) amino acids modified by carbohydrate and lipid, (2) polythio- and polyselenoether macrocycles of varying sizes useful as ligands for heavy metals, (3) unique poly(pyrazolyl)borate coordination complexes, and (4) electrically conducting polymers of precise length and composition. Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The addition of the technique of electrospray extends the range of MS to protein and nucleic acid molecular weights far beyond any other technique. The use of electrospray ionization in combination with high resolution provides the latest technique available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry. ***